Purchase of an NMR Spectrometer

This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at the University of Missouri - Columbia in the purchase of a 250 MHz proton nuclear magnetic resonance (NMR) spectrometer. The instrument will be used to support research in the following areas of chemistry and biochemistry: 1. Synthetic and mechanistic investigations of organic peroxides from alkene ozonolysis; 2. Development of new reactions for application to problems in total syntheses; 3. Preparation and study of new organometallic complexes which mimic heterogeneous catalysis; 4. Characterization of the protein glycation process; 5. Nitrosamine chemistry; 6. Development of new bifunctional ligands with application as radiopharmaceutical agents. %%% This award will assist in the purchase of a modern nuclear magnetic resonance (NMR) spectrometer. This instrument is an essential tool for faculty members at the University of Missouri engaged in chemical research. The instrument provides important information which in most cases can be used to determine the geometric and/or molecular structure of newly synthesized molecules.